Engineering Foundation Conference on "Emerging Separation Technologies for Metals and Fuels"

This award provides support for a conference with representatives from academia, industry and national laboratories to examine emerging separations processes for the mining, minerals and fuels industries. The program encompasses a wide spectrum of approaches from membranes and solvent extraction to separation methods based on molecular recognition or biotechnology. The meeting will help to make American firms more globally competitive and is timely with the present focus on renewing the industrial and civil infrastructure. Broad impact is expected with potential benefit to several industrial sectors and the general public through addressing environmental processin problems.